Parity Nonconservation in Atomic Dysprosium

This proposal, "Parity nonconservation in Atomic Dysprosium", is for observations of parity nonconservation in atomic Dysprosium, employing the methods of atomic beams and laser optical spectroscopy. The investigator seeks to make quantitative tests of the standard model where radiative corrections are important, and thus to try to discover new physics beyond the standard model. Second, he seeks to uncover small but interesting secondary effects such as those due to a nuclear anapole moment. Finally, parity nonconservation experiments provide unique tests of many-body relativistic calculational techniques in atomic theory.